U.S.-Nigeria Cooperative Study of Cretaceous Black Shales in Benue Trough Nigeria, (Science in Developing Countries)

Technical Narrative: This U.S.-Nigeria collaborative research project involving Indiana University and the University of Ibadan, Ibadan, Nigeria is in the area of geochemical and stable isotopic studies of mid- Cretaceous black shales. Project funding will allow a highly qualified researcher from Nigeria to spend an extended period of time in the laboratory of Dr. Lisa M. Pratt at Indiana University. The collaborative research will investigate mid- Cretaceous black shales from the Benue trough in southeastern Nigeria. One of the projected outcomes of the study will be a strategic framework for the Nigerian black shales that can be correlated with standard North American and European stages. This project in geochemistry fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Nigeria to combine complementary talents and pool research resources in areas of strong mutual interest and competence.